Optimal Control Methodologies for Water Distribution Systems

This project will investigate a real time control methodology for pumping water in a distribution system with the objective of minimizing costs of operation of the system. This is the first year of a three year project.